Mathematical Sciences: Mathematical Problems in Compressible Fluid Flow

- The proposer will investigate various questions relating to the existence, stability, regularity, large-time behavior, and numerical approximation of solutions of systems of certain partial differential equations arising in the theory of viscous, compressible fluid flow. Discontinuous solutions are of particular interest, and play a unifying role in the project. A fairly well-developed theory has been attained in previous work for flows in one space dimension and for flows which are spherically symmetric. More recent research has extended some of these results to general multidimensional flows. A great deal of work remains to be done for multidimensional flows, however, and this will occupy the greater part of the project. It is also proposed to continue work on various issues remaining for one-dimensional flows, especially the rigorous mathematical analysis of viscous contact discontinuities. The proposer will study various mathematical questions concerning important models of compressible fluid flow. These models arise in a broad range of applications, from supersonic flight to dynamic meteorology, among many others. While the main purpose for constructing these models is to achieve a predictive capability, they are far too complicated to be "solved" in any explicit sense. On the other hand, adequate approximate solutions can often be generated by computer methods. However, the intelligent design of such methods depends crucially on a rigorous understanding of why solutions do exist, in what sense, and in what ways they are sensitive to noise in the data. The primary goal of this project is therefore to provide such a rigorous mathematical analysis for these models; a secondary objective is to apply these mathematical insights to the intelligent design and analysis of algorithms for generating approximate solutions.